Kinetics and Mechanisms of Rapid Reactions in Solution

The Inorganic, Bioinorganic and Organometallic Chemistry Program of the Chemistry Division supports the studies of Dr. Dale Margerum, Department of Chemistry, Purdue University, which will provide (i) a fundamental knowledge base in the area of inorganic solution chemistry, in particular the reactivities of oxohalogen species in aqueous media, (ii) further development of a novel spectroscopic tool to investigate fast reactions, and (iii) which will examine the reactivities of nickel(III) and copper(III)-peptide complexes to gain an understanding of their role in site-specific DNA damage.

These studies are wide-ranging in scope. Results will be of benefit to understanding the chemistry taking place in the environment (oceans, lakes, rivers and in atmospheric cloud droplets). The knowledge base resulting from these studies will also be of benefit to the pulp and paper industry and other allied industries that use halooxo substances in aquatic media, and whose annual sales reach about $180 billions. The studies will provide an excellent training ground for undergraduate and graduate students.